CAREER: Large-Scope Atomistic Simulations of Multiscale Material Phenomena: A Multidisciplinary Computational Approach

This CAREER project in high performance computing and communications (HPCC) will develop an integrated research and education framework for predictive simulations of complex, real-life phenomena. The objective of this research project is to extend molecular dynamics (MD) simulations to larger system sizes, longer simulated times, and greater realism, through the use of new multilevel algorithms and novel models encompassing multiple levels of physical abstraction: i) space-time multiresolution schemes; ii) hierarchical dynamics via a rigid-body/implicit-integration/normal-mode approach; iii) adaptive curvilinear-coordinate load balancing; iv) variable valence MD based on electronegativity equalization; and v) multilevel preconditioned conjugate gradient method. Multimillion-atom MD simulations will be performed for multiscale phenomena in nanophase ceramics and metal-oxide nancomposites. The proposed research will impact advanced material technologies based on "multiscale structure control."